The Beetles of the Virgin Islands (Coleoptera: Insecta)

WPC 2 M B P V ` Courier 10cpi | x ? x x x , k x 6 X @ 8 ; X @ Leonard Krishtalka 2 3 ' 3 ' 3 ' 3 ' 4 < D L ! 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' 3 ' X 3 ' 3 ' 3 ' 3 ' X X X 3 ' 3 ' 3 ' 3 ' " 4 < D L ! ` h p x (# # x \ P C X P# 9300766 Ivie This two year project will document the diversity, systematics and geographic distribution of the beetles of the Virgin Islands and will ultimately result in a specimen based electronic database and a taxon based illustrated manual. Both products will be based on new field collections and an inventory of existing collections in American and European museums. The collections will include standard specimen mounts as well DNA material for future biodiversity studies. The manual will be used by scientists, land managers, agriculturalists, educators and conservationists. %%% The Virgin Islands are quickly becoming urbanized, with concomitant loss of a significant percentage of its biodiversity. This two year project will document the diversity and geographic distribution of the beetles of the Virgin Islands. The data will be kept in electronic database and will be published as an illustrated manual for use by scientists, land managers, agriculturalists, educators and conservationists. *** ` h p x (# ` h p x (#